Low-Dimensional Geometry and Topology

Abstract

Award: DMS-0103843
Principal Investigator: Feng Luo

The principal investigator will focus on two problems in the
Teichmuller theory and 3-manifold topology. In Teichmuller
theory, the aim of the investigation is to understand the complex
structure on the Teichmuller space by constructing holomorphic
functions arising from flat singular metric uniformization of the
Riemann surface. We have produced many naturally defined complex
valued functions on the Teichmuller space. The goal is to show
that they are holomorphic. This will give us a better
understanding of the complex structure which is of vital
importance to the Teichmuller theory. In 3-manifold topology, we
propose to show that any non-trivial 3-manifold group has a
non-trivial SL(2,F) representation for some field F. We have
translated the existence problem into a problem concerning how
simple loops propagate in a surface. With the recent advance of
our knowledge on surfaces, one may eventually solve the problem
using surface topology. The existence of SL (2,F)
representations will have many important consequences in
3-manifold topology.

A 3-manifold is a space in which every point has a small
surrounding similar to our real world. It is an important
mathematical problem to classify all 3-manifolds. One of the main
tool developed in recent decades in 3-manifolds theory is to use
geometry. In particular, the geometry of surfaces has been used
very successfully in understanding the 3-dimensional spaces. The
proposed work addresses the topology of 3-manifolds and the
geometry of surfaces. We attempt to use the symmetry theory
(SL(2) representation theory) to understand the fundamental group
of 3-manifolds which is a vital invariant of 3-manifolds. The
SL(2,C) representation theory has been used very successfully in
recent years by many topologists. Our approach seems to be new
and uses simple loops on surfaces. The second part of the
proposed work addresses the geometry of surfaces. One of the main
problems on surface geometry is the moduli space problem. The
moduli space problem asks for, for instance, what is the shape of
the space of all convex polyhedrons which look like a cube. Many
geometric problems are best expressed in terms of the topology
and geometry of the moduli space. The corresponding object for
high genus surface is the Teichmuller space. In contrasts to the
topology of the Teichmuller space which is well understood for
about 60 years, the geometry of it is much less understood. Our
proposed work is an attempt to understand explicitly the complex
analytic geometry of the Teichmuller space. The explicit
description of the complex geometry of the Teichmuller space will
have applications not only in mathematics but also in physics,
for instance in string theory.